Andean Delamination Events: Geochemical Tests

Evidence for delamination of the lower lithosphere under regions of tectonic thickening includes rapid uplift coincident with the onset of voluminous crustally-derived magmatism, sometimes accompanied by mantle-derived basalt. Two localities in the central Andes appear to be good candidates to study magmatic rocks associated with delamination: 1) the Argentine Puna Plateau in the late tertiary, and 2) the Gondwana margin in the late Paleozoic-Triassic in the Chilean Frontal Cordillera. This project is to use isotopic mass tracers and trace element pressure-temperature indicators, along with geologic and geophysical constraints, to test and modify the delamination hypothesis in these two regions, as well as to characterize the delaminated Andean lithospheric material, and to examine its relation to southern Hemisphere mantle heterogeneity.